Neural Network Observers for Tracking Synchronous Machine Parameters and Incipient Failure Detection

ECS-9722844 Keyhani The Ohio - State University, Arizona State University and Arizona Public Service Company propose to undertake a collaborative research effort in development of technology for on-line parameter identification and incipient failure detection of synchronous generators. The procedure will be based on the development of neural network based observers to track the machine damper currents, parameters, field winding to-stator turns ratio in dynamic disturbances and identify the signatures of the machine parameters, the machine neutral current and torque angle. The impact of on-line parameter tracking and signature identification of the generator key indicators will have significant impact on-line incipient failure detection and identification of field winding degradation. For example, the economic cost of a forced outage of The Arizona Public Service company Four-Corner unit is approximately two hundred thousand dollars a day. The on-line detection of incipient failure will facilitate the orderly shutdown of generators for repair. It is expected that the project will impact the original maintenance scheduling, of large synchronous generators. Furthermore, in the next decades, the power systems of the United States will face bottlenecks of bulk power transfer capabilities because of the virtual absence of new transmission. The increased utilization of existing facilities to cop with growing magnitude of bulk power transfers and third-party access will require a closer look at system stability requirements. The tracking of the machine parameters will facilitate more accurate stability studies. Therefore, the economic impact of the proposed research is quite significant in permitting operation of power systems much closer to the stability limit by increasing the transfer capabilities and postponing the need for new construction